CAREER: Species Interactions of Coral Reef Benthic Cyanobacterial Mats: Within-Mat Diversity Promotes Both Facilitation and Top-Down Control

Nuisance algal blooms are a massive conservation challenge to global ecosystems. Cyanobacteria can form large, persistent mats on coral reefs, posing additional environmental threats through physical smothering of and chemical interactions with other reef organisms, including corals. This research seeks to understand processes that lead to bloom longevity, such as metabolic cooperation between microbial species, and to study natural mechanisms of bloom control, such as the combination of large-bodied predators, reef fish, and viruses. The results of this research inform management of cyanobacteria on coral reefs and the project supports development of SCUBA diver interventions to control cyanobacterial blooms, through training materials and workshops for the dive and snorkel tourism industries.. The project also provides research training for undergraduates, graduate students, and postdoctoral researcher, internships for high school students, and supports the development of K-12 educational materials and publicly-available bioinformatics resources for undergraduate courses.

This project advances understanding of the ecological processes that lead to prolonged cyanobacterial blooms, focusing on metabolic facilitation and top-down controls on benthic cyanobacterial mats. The research makes three major contributions to our knowledge of the functional ecology of marine cyanobacterial mats via (1) mechanistic characterization of within-mat metabolic handoffs, (2) identification of viral-driven changes to within-mat metabolic cooperation, and (3) description of interactions between micro- (viral) and macro-scale (fish) predation. Regardless of whether specific hypotheses are supported, the data generated by this research greatly advance the field of viral trophic ecology by testing ecological theory using a mechanistic hypothesis to understand biogeochemical outcomes of functional mosaics between density-dependent lysis-lysogeny switches. This project is expected to produce evidence for the roles of cooperative interactions among mat-building bacteria and bloom control by multiple predators including reef fish and viruses. Viral ecology is difficult to study in natural microbial systems, and thus this project contributes to our knowledge about the ecological roles of viruses in natural contexts.